Purchase of a Nuclear Magnetic Resonance Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation (MRI) Program will enable the Department of Chemistry at Yale University to acquire a 400 MHz NMR Spectrometer. This equipment will enhance research on a number of projects ranging from synthesis of natural products and other biologically active compounds to elucidation of reaction mechanisms, transition metal chemistry, organometallic chemistry, catalysis, and development of reagents for stereocontrolled synthesis. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.